Engineering Research Deployment Teaching Initiative: Effective Engineering and Design Courseware via Boundary Methods

9409852 Kane This project deploys advanced boundary element analysis (BEA) simulation techniques with the unique potential for creation of truly effective courseware in engineering and design education. It will develop, demonstrate, and broadly disseminate the resulting protype engineering and design courseware. The project synergizes compelling attributes of advanced boundary formulations, with contemporary/emerging hardware and software, and practices in technical communications and publishing (electronic and classical). An engineering and technical communications team will develop innovative, multimedia courseware via an interactive BEA "engine", and integrate the resulting capability in an engineering lecture series with potential for incorporation in engineering textbooks. Boundary formulated computer simulation techniques are more amendable to deployment in the instruction of fundamental engineering subjects (i.e., solid and fluid mechanics or heat transfer and design). Such technology can be made truly interactive, widely available, and readily usable by both instructors and students in the context of an academic semester without an extensive learning curve. Thus, the active deployment of interactive computer programs that can faithfully simulate and depict the response of physical systems as an integral part of the engineering instruction process is developed.